Composite Sacrificial Anode for Reinforced and Prestressed Concrete

The innovation proposed in this program is a tailored composite sacrificial anode for galvanic cathodic protection systems for reinforced and prestressed concrete. This anode system can be tailored for each application to provide the desired performance characteristics by changing the composition and form of the finished composite. The composite sacrificial anode will contain all of the necessary components in a single unit, minimizing the need for special installation procedures. The focus of the program will be on development and testing of composite sacrificial anodes in aqueous alkaline solution and concrete environments for galvanic protection of reinforcing steel and prestressing wires. The effects of fabrication methods, anode composition, physical characteristics and form, and concrete chemistry, resistivity and temperature on galvanic performance will be evaluated.